Nanoscale Informal Science Education Network

The Museum of Science, Boston (MOS) and its primary collaborators, the Science Museum of Minnesota (St. Paul, MN) and the Exploratorium (San Francisco, CA), are continuing and expanding the Nanoscale Informal Science Education Network (NISE Net), which has been in operation since 2005. NISE Net has established a national infrastructure of over one-hundred hands-on science centers and universities within seven regional hubs with the goal of fostering public awareness, engagement and understanding of nanoscale science and engineering (NSE).

As part of this undertaking, NISE Net partners have:
- created a nation-wide set of annual events called NanoDays;
- developed dozens of interactive exhibits, media-based products, programs, and public forums based on NSE;
- generated new knowledge about the design for learning about NSE, its applications, and societal implications;
- produced a network that involves informal educators and researchers; and
- developed a Web site for professionals, www.nisenet.org, that includes several resources for educators and researchers, including a catalog of educational products.

During the next five years (2010 - 2014), NISE Net will continue to develop new educational products, deepen the involvement of current partnerships in nanoscale informal science education, and expand the number of partners overall to 300 organizations. The advisory committee, content steering committee, regional hubs, and other work groups will continue to develop collaborative relationships between museums and university-based NSE research centers, including Materials Research Science and Engineering Research Centers (MRSECs) and Nanoscale Science and Engineering Centers (NSECs). A Diversity, Equity, and Access group will actively support, foster, and encourage the NISE Net's efforts to reach diverse audiences with regard to geography, dis/ability, gender, race/ethnicity, language, and income. Four research studies will be conducted: Partnership and Network, Institutional Change, Learning Progressions, and Evidence-Based Decision Making.